Frictional Constitutive Behavior of Natural Fault Gouge Materials: Effects of Mineralogy

Saffer EAR-0229585

Defining physical and mechanical properties of fault gouge and their
relationship to fault behavior remains a fundamental step toward
understanding earthquakes and faulting. Frictional velocity
dependence is considered the most likely mechanism to explain
differences between stable sliding (aseismic) and unstable stick-slip
(seismogenic) behavior. Materials that exhibit velocity-strengthening
behavior produce only inherently stable frictional slip, whereas
those that exhibit velocity-weakening are capable of hosting unstable
rupture. This work will define the frictional properties of a suite
of natural and synthetic mixed-mineralogy gouges, as a function of
composition. The experimental plan will focus on testing (1) natural
samples of subduction zone materials that have undergone progressive
alteration at temperatures up to ~250 degrees C, and (2) a suite of
synthetic mixtures of montmorillonite, illite, and quartz, and
developing the appropriate constitutive equations to describe their
behavior. This work will include: (1) quantitative x-ray diffraction
(XRD) to determine the composition of natural gouges, (2) a series of
shearing experiments for each material, over a wide range of
experimental conditions, and (3) petrographic and SEM
characterization of microstructures in experimentally deformed gouges
and comparison with natural microstructures observed in the sample
localities. The work will provide high-quality measurements of
frictional constitutive properties for realistic natural fault gouge
materials relevant to seismic faulting, and define variations in
these properties with gouge composition. This work will constitute an
important step toward a better understanding of fault behavior and
its potential variability with depth and along-strike. In addition,
detailed characterization of fabric development in experimentally
deformed gouges will provide important insights into application of
laboratory measurements to natural faults.